Feedback Control Design for Bipedal Robots

The motivation for studying walking robots arises from diverse sociological and commercial
interests, ranging from the desire to replace humans in hazardous occupations, to the restoration of
motion in the disabled, the possibility of using legged locomotion in terrain that is unsuitable for
wheeled locomotion, and the psychological appeal of machines that operate in anthropomorphic or
animal-like ways. Feedback control is an integral part of achieving bipedal locomotion.
Control system design for biped robots poses numerous challenges due to the many degrees of
freedom in the mechanisms, the intermittent and unilateral nature of the contact conditions with
the environment, and underactuation. The most technologically advanced biped robots today are
walking on the basis of a heuristic control principle that imposes a flat-footed walking motion in
order to avoid dealing with the underactuation that comes with foot rotation (i.e., toe roll and
heel strike). Professor Grizzle's research will develop the analytical foundations of walking with an
anthropomorphic gait. By not relying on heuristics, significantly improved feedback controllers will
be designed that allow the natural rotation of the foot during the stance phase of walking, while
still guaranteeing stability of the walking motion. Beyond a certain speed, walking is no longer
efficient (or even possible). The extremely challenging problem of controlling a running motion
of a bipedal robot will be investigated, both theoretically and experimentally. These results will
greatly enhance the ability to design machines that can perform human-like tasks. Another portion
of the research will look at controlling a robot with a passive knee (active damping but otherwise
unactuated), analogous to walking with a modern prosthetic.
Professor Grizzle is actively engaged in undergraduate and graduate student education. NSF
support of this research proposal is enhancing the research and education infrastructure at the
University of Michigan through the construction of a biped robot prototype. The robot affords
experimental facilities and numerous projects for students. This research grant provides for the
training of one PhD student, and a Research Experience for Undergraduates (REU) supplement to
this grant will provide a meaningful research experience for two undergraduate students. Special
attention is being paid to recruiting at least one of these students from an underrepresented group.
Professor Grizzle is also more broadly sharing the excitement of a research career in engineering
by making presentations on bipedal walking robots to undergraduate student groups, and high
school students. On the basis of his research findings in biped robot locomotion control, Professor
Grizzle is forging research relationships with colleagues in neurology and rehabilitation. His goal
is to transfer the deeper understanding of bipedal posture and locomotion that is resulting from
the study of robots, to the development of improved rehabilitation therapies for a class of patients
who have suffered strokes or spinal cord injuries.
The research findings of this grant are maintained on Professor Grizzle's web site; see above for
the URL.